The Southeast Logic Symposium

Abstract

Award: DMS-0335481
Principal Investigator: Jindrich Zapletal

This award provides partial support for the annual Southeast
Logic Symposium (SEALS), to be held at the University of Florida
in March 2004, 2005, and 2006. These are weekend conferences
that emphasize set theory and bring together established
logicians and set theorists, junior researchers, and graduate
students. The emphasis of SEALS 2004 will be on the interaction
between descriptive set theory, cardinal invariants, Borel
equivalence theory, pcf theory, and determinacy.